Scalable Entity Resolution for Massive and Streaming Data Contexts

This research project will develop the first model-based statistical approach to perform entity
resolution for streaming data contexts and will address the issue of scalability in both online and
offline scenarios. With the ubiquity of data, linking multiple data sets is a crucial first step in
many types of inference for myriad applications including healthcare, official statistics, ecology,
and fraud detection and national security. Entity resolution is the task of resolving duplicates
in two or more partially overlapping sets of records, or files, from noisy data sources without a
unique identifier. Statistical approaches to entity resolution are advantageous because they provide
interpretable parameters and quantify uncertainty in the linked records. Linking becomes more
challenging when the data update over time, termed streaming or online data, or when the data
scale is massive. Currently no statistically model-based approaches exist to resolve entities in an
online way. Relatedly, the nature of streaming data exacerbates the challenge of scalability in
that the number of records to be linked accumulates. The methods will be made accessible to
practitioners and other researchers through open-source software and the project will additionally
provide educational and professional training and mentoring to graduate students.

This project will expand model-based entity resolution into the streaming data space through
the formulation of new models and novel computational algorithms. Specifically, this project aims to
improve scalability of Bayesian entity resolution models through approximate sampling techniques,
such as variational inference, and develop fast updating of a Bayesian entity resolution model in a
streaming data context, resulting in the first Bayesian entity resolution model updating strategy
that can handle streaming data contexts for massive data sets. A limitation of existing methods for
streaming inference with Bayesian models is that the pool of samples to be updated will converge to
a degenerate distribution as the process is repeated many times, which guarantees poor quality of
model fits in a streaming setting. This issue will be addressed with introduction of a novel Markov
chain Monte Carlo sampler for streaming Bayesian inference, which will improve existing methods
by combining filtering ideas with a highly parallelizable transition kernel.